Timelapse Video Equipment for Construction Operation Laboratory

This project improves undergraduate construction education through the development of a computer-driven video-editing system which will enable students to collect time-based data from field operations and analyze it in the laboratory. The importance of the system lies in its ability to compress the playback time and reduce the amount of data viewed to the required level of detail. The equipment used for the development of the above system includes: (1) a video camera, (2) two VCRs, (3) an IBM compatible PC, and (4) an erasable optical disk. The system is used to provide undergraduates with direct experience in design and improvement of construction operations. Students record construction operations, develop data for presentations or as input to simulation models, and prepare recommendations for improvement.